RAPID: OOI-Industry Partnership to Install a Cabled 45 kHz ADCP at Axial Seamount Caldera

The PI proposes to test a new acoustic Doppler current profiler (ADCP) which has the potential, for the first time, to provide real-time monitoring of currents throughout the entire ~1500 m of water column that overlies Axial caldera. If successful, this instrument will be of broad use to the community with important applications spanning quantification of rising methane-and biologically-rich plumes at sites of gas hydrates, to monitoring changes in currents along continental margins impacted by ocean acidification and anoxia events.